LOCALIZATION, STRING DUALITY AND MODULI SPACES

Abstract

Award: DMS-0705284
Principal Investigator: Kefeng Liu

Moduli spaces have played fundamental roles in many subjects of
mathematics from geometry, topology, algebraic geometry, to number
theory. String duality from string theory has motivated many deep
mathematical results and theories. The principal investigator
proposes to have an intensive study on applying localization method
combined with other newly developed geometric techniques to solve
fundamental problems arisen from string duality about the geometry
and topology of moduli spaces of Riemann surfaces and stable maps.
There are several specific problems that we hope to solve under the
support of the proposed research grant, these include the general
recursion formulas for intersection numbers of general tautological
classes which include the Faber conjecture
as special case, the Virasoro conjecture for general projective manifolds,
the understanding of topology, algebraic geometry of moduli spaces,
and the computing of the holomorphic anomaly by using our geometric
results about moduli spaces.

The interactions of mathematics and physics have motivated many
fundamental advances in both disciplines.
String Theory, as the most promising candidate for the grand
unification of all fundamental forces in the nature, should include
all previous theories like the Yang-Mills and the Chern-Simons
theory. String duality which identifies different theories in string
theory has produced many surprisingly beautiful mathematical
formulas about the geometry and topology of moduli spaces of Riemann
surfaces. The mathematical proofs of many of these conjectural
formulas depend crucially on localization techniques. This program
will not only help verify important physical theories, but also
produce beautiful and fundamental mathematics. In carrying out the
project we will also train several young students and post-doctors to conduct research in
these subjects through collaboration and lectures.